Aspects of Computational Complexity

The inherent complexity of computational and data manipulation problems is investigated. Specific topics studied include Boolean circuit and communication complexity, decision tree models, and the complexity of data structures. A concentrated effort is made at resolving some of the long standing open problems. Techniques from combinatorics, probability theory, and topology provides the main mathematical tools for the project.